Industry/University Cooperative Research Activity: The Roleof Slurry Rheology in Size Reduction and Material Transport in Tumbling Ball Mills

Slurry rheology plays a significant role in both the transport of solids and the size reduction process in continuous grinding mills. Despite their importance, however, there is a surprising lack of quantitative information of the precise nature of these rheological effects. The objective of this project is to carry out a systematic investigation of the effects of slurry rheology on material transport and size reduction in tumbling ball mills. The proposed research includes fundamental studies of the rheological behavior of slurries, quantitative evaluation of the effects of slurry rheology on particle breakage in mills, and investigation of the rheological aspects of material transport in continuous mills. The ultimate goal of the project is to develop an improved physical/mathematical treatment of the process of size reduction in continuous grinding mills.